Enhanced Mass Transfer from Rubber Sheet Spargers

The mass transfer characteristics of bubbles released from rubber sheet spargers are investigated. Single hole studies on bubble formation confirm the original contention that the self-regulation of elastic holes has a significant effect on formation dynamics of bubbles released from the sparger. New experiments are designed to show in vivid color the structure of the mixing and circulation induced by an elastic membrane sparger (flexisparger). Initial acid base experiments suggest that flexispargers induce swirl flow. Preliminary work shows that flexispargers produce enormous enhancements in k;iLa, and large reductions in axial mixing. Additional experiments are being initiated to measure the dispersion characteristics, the interfacial areas, and the mass transfer coefficients of bubbles generated by these spargers.